Molecular Relaxation Dynamics and Structure of Poly(ethyl- eneoxide) Complexes with Metal Ions in Solution

This award is made in the Materials Chemistry and Chemical Processing Program to support the collaborative research of Dr. E. Eyring at the University of Utah, Dr. S. Petrucci at Polytechnic University and T. Skotheim at Brookhaven. The research will deal with the structure and dynamics of alkali and alkaline earth cation complexation with polyethylene oxide(PEO). These polyether complexes are of interest both fundamentally and as solid electrolytes in light-weight rechargeable batteries. The dynamics of polyether complexes will be studied by means of Radiofrequency and UHF ultrasonic relaxation spectra, radiofrequency and microwave dielectric relaxation spectra, audiofrequency electrical conductivity, Raman and infrared vibrational spectra, and X-ray photoemission and synchrotron radiation studies. Effects of polyether chain length and the nature of the coordinating cation will be systematically explored.